MRSEC: Center for Semiconductor Physics in Nanostructures (CSPIN)

The University of Oklahoma / University of Arkansas Materials Research Science and Engineering Center (MRSEC), titled the Center for Semiconductor Physics in Nanostructures (CSPIN), supports innovative research and education in controlled growth of semiconductor and ferroelectric arrays, and narrow band gap semiconductor heterostructures. Potential applications include inexpensive high density, low power, non-volatile memory, negative refractive index materials, and improved magnetic read-head technology. The center will develop coordinated activities in graduate and undergraduate education, advance inquiry based learning for the improved understanding of K-12 science, and partner with regional museums to produce exhibits for the general public.

The MRSEC consists of two Interdisciplinary Research Groups (IRGs); IRG-1 Collective Properties of Nanostructure Arrays - control over semiconductor and ferroelectric materials growth will yield systems that give new insight into the collective interactions between individual quantum dots, wires and rings, and will provide the basis for new optical and electronic materials. IRG-2 Mesoscopic Narrow Gap Systems - explores the unique properties of narrow bandgap semiconductor materials to address nanoscale electronic devices that exploit quantum mechanical effects for higher speed operation, denser memory with increased functionality.

Participants in the center currently include twenty two senior investigators split evenly between the two partner institutions. In addition the center includes, six graduate students and three post-doctoral associates at the University of Oklahoma and six graduate students and six post-doctoral associates at the University of Arkansas. Professor Matthew Johnson at the University of Oklahoma directs the MRSEC.